Search Engines Support for HLT Applications

This project extends search engine indexing and retrieval models
developed initially for structured (e.g., XML) documents to provide
convenient support for capabilities required by question answering,
computer-assisted language learning, and other human language
technology (HLT) applications. These new capabilities are required
because it is becoming common for HLT applications to use search
engines to find information in large text databases. HLT applications
typically use extensive text annotations to reduce the mismatch
between the word-based representations convenient for text retrieval
and the concept-based representations convenient for reasoning. They
also can describe very specific requirements that retrieved text
passages must satisfy. This use of text search is very different than
ad-hoc, interactive search, and current search engines do not support
it well. This project extends probabilistic indexing and retrieval
models to support multiple, detailed, overlapping text annotations,
hierarchical text annotations, annotations with associated confidence
values, and similar capabilities. By explicitly recognizing HLT
applications as first-class users, the proposed research broadens the
research community's view of text search well beyond the simple
queries, text representations, and retrieval models that characterize
interactive, ad-hoc search today. It may also lead to improved
interactive search by providing a medium in which search interfaces
can express constraints and preferences derived from sophisticated
user and task models. Research results are disseminated in technical
papers, and as part of the open-source Lemur Toolkit. The project Web
site (http://www.cs.cmu.edu/~callan/Projects/IIS-0534345/) provides
additional information.